Collaborative Research: RII FEC: Advancing Quality and Climate-Resilient Water Management with Community Partnerships and Enhanced Sensor Network

Communities across the United States are suffering water shortages for drinking and farming, as well as challenges to keeping water bodies clean and protecting aquatic life. These issues impact everyone. They are particularly harsh on communities without proper infrastructure to prepare for, adapt to, and recover from water management problems, leading to economic losses and the loss of historic homelands. Extreme conditions can also cause harmful substances to spread beyond already contaminated areas. This project focuses on communities in South Dakota, New Mexico, and Vermont that are experiencing more frequent and intense droughts, wildfires, and floods. To address these challenges, the project will pursue research aimed at creating intelligent and affordable systems to monitor water quantity and quality, using local knowledge and easy-to-use sensors to detect and measure pollutants in real-time. This collaboration, called Advancing Quality and Climate-Resilient Water Management with Community Partnerships and Enhanced Sensor Network (AQUA-CLIME), aims to help the participating communities manage water quality and quantity issues. AQUA-CLIME will engage research experts, practicing professionals, and local communities from the University of Vermont and Norwich University in Vermont, South Dakota School of Mines and Technology and Oglala Lakota College in South Dakota, and New Mexico State University and Navajo Technical University in New Mexico. AQUA-CLIME will create a research network involving people, equipment, and technology. It will facilitate collaboration among communities, farmers, students, teachers, industry groups, state agencies, and nonprofits. The project will also support career development for myriad people at all stages.

This project will reveal underlying knowledge gaps about the causes that impact water quality and quantity facing rural and agricultural communities in the three participating jurisdictions, and will have applicability to the U.S. more broadly. The convergence research infrastructure guided by local knowledge is expected to yield fundamental insights to address data knowledge gaps and generate timely, actionable information for contaminant identification, quantification, mitigation, and communication. Outcomes from the work would include: (i) an integrated data science framework for monitoring contaminants under various scenarios; (ii) a spatially distributed network of affordable, printable sensors and surrogate sensors for monitoring contaminants in watersheds; (iii) data fusion methods for analyzing complex interactions among different scenarios and contaminant source/sink dynamics; (iv) strategies for integrating sensor networks for effective management of water resources; and (v) functionalization strategies for obtaining smaller and yet smarter microsensors. The project will build community-academic partnerships that will contribute to water management solutions for securing water quality and quantity, develop a future-ready expert workforce, and positively impact communities.